Advanced Computational Capabilities for Exploration in Heliophysical Science (ACCHS) Workshop; Boulder, Colorado; August 16-18, 2010

This project will support a workshop, to be held from August 16 to 18 at the National Center for Atmospheric Research (NCAR) in Boulder, Colorado, to bring together experts in computational space physics to address such questions as:
- What are the key scientific areas in space physics where advanced computational capability is likely to produce transformational discoveries?
- How do recent advances in numerical algorithms and high-performance computing enable us to address problems of critical importance to the Sun-Earth system?
- How must our modus operandi change as space- and ground-based instruments produce ever more data and the requirements on instruments for our space missions grow in sophistication?
- What are the ways in which interdisciplinary collaborations among the various subfields of space science will be enabled by advanced computing capabilities?
What kinds of computer hardware and networking would best suit the needs of the space physics community?
The Workshop Working Groups will address particular needs and opportunities in (1)Solar, (2)Interplanetary, (3)Magnetospheric, (4)Ionospheric-Thermospheric, and (5)Advanced Computation topics.